Research Initiation: Development of a Microprocessor-Based Algorithm and Instrumentation for Ultrasound Tissue Differentiation

This research is directed towards the fundamental bioengineering problem of utilization of ultrasound to differentiate between normal and abnormal tissue. The Principle Investigator will compose a new algorithm for interpretation of the signals received by ultrasound transducers. The basic concept is to employ a pattern recognition algorithm which can use a more extensive diagnosis of the ultrasound signal including the time and frequency domains. Success of such an analysis could preclude the necessity of biopsy examination for classification of tissue abnormality.